Engineering Creativity Award for Mathew Wilson

The purpose of this research project is to investigate the nonlinear optical properties of d-doped GaAs and to design and characterize unique space charge structures created with this new doping techniques. One of the main objectives is to merge and incorporate the concepts of nonlinear optics and atomic layer doping of semiconductors for the first time by implementing creative methods of materials characterization with hopes of developing a better understanding and advancing both of these areas in materials science.